Keys Marine Laboratory: Research Equipment Enhancement

Dr. Sandra Vargo is the Associate Director of the Florida Institute of Oceanography of the University of South Florida. The Institute, in partnership with the Florida Department of Natural Resources, operates the Keys Marine Laboratory on the site of a former Sea World theme park on Long Key. Keys Marine Lab is uniquely situated for mainland research on tropical marine habitats, and the Lab is actively used for State-sponsored research. Dr. Vargo plans to improve the Lab's research capabilities by acquiring items of basic lab equipment for general use (balances, a deionized water supply system, a pH meter, four microscopes, two centrifuges, and a low temperature freezer). The Keys Marine Lab is a potentially important research facility with a growing number of active on-site research projects. The new instrumentation will make it possible for the Lab's impact to grow as investigators establish research programs there. Research into fragile marine and coastal tropical environments is currently constrained by the lack of adequate and easily accessible research facilities. The continued growth of the Keys Marine Lab will open up new research opportunities in marine science.